Doctoral Dissertation Research: Management of Sustainable Common Pool Resources

Doctoral Dissertation Research: Management of Sustainable Common Pool Resources

Principal Investigator: Stephen Cornell
Co-Principal Investigator: Jamie Dolan
University of Arizona

Common pool resources (CPRs) are particularly vulnerable to depletion or degradation due to their availability to many people. This research will study how different governance structures interact with local conditions to explain successful resource management in the context of fish and wildlife management programs across Native American nations. Data for these analyses will be collected through in-depth case studies of tribal fish and wildlife programs across the U.S. and through a survey of members of a national organization that unites professionals working in these programs.

There is a great deal of interest in the management of common pool
resources across a number of social science fields, and this research will contribute
to our understanding of how these resources are used and misused. The research
will have an important practical impact on managing fish and wildlife resources by
Native American tribes and other governmental units.